A Comprehensive Undergraduate Laboratory for Environmental and Analytical Chemistry

Interdisciplinary (99) Students in earth and environmental science courses use ion chromatography (IC), gas chromatography-mass spectrometry (GC-MS) and portable field meters to study the concentration and distribution of pollutants in surface and subsurface aquatic systems. Chemistry majors, including environmental chemistry majors, use IC and GC-MS at multiple times to study concentrations of trace organic pollutants in the Hudson River, an in-class environmental forensics investigation, and in organic chemistry. Using this equipment, dual chemistry/education majors develop materials for use in their future classrooms. These students use project-related equipment during student teaching and after graduation. Guiding non-chemistry majors with limited instrumental analysis experience is a student peer-educator. The project expands cross-disciplinary research efforts by means of a series of undergraduate projects.